The Mutual Interaction of the Atmospheric Boundary Layer and Mountain Waves

9713073 Poulos While gravity waves have received increasing recognition for their role in atmospheric dynamics, the significance of gravity-wave-induced, near surface perturbations have not been studied to any significant degree. Under this award, the Principal Investigator will use numerical simulations and detailed analysis of dynamics to investigate the interaction of topographically forced gravity waves and the terrestrial atmospheric boundary layer (ABL). The Principal Investigator will investigate: how the perturbations to the lower troposphere due to evolving mountain waves create boundary layer flow variability; and the influence of the diurnally evolving ABL on mountain wave characteristics, such as momentum transport, breaking, and reflection. An understanding of the feedbacks between these two atmospheric phenomena will also be pursued. Analysis will focus on results from a non-hydrostatic, primitive equation, mesoscale model, which will be run for a series of 3-dimensional, idealized simulations of increasing complexity. There will be three types of control simulations: 1) the diurnal cycle of boundary layer flow without mountain wave influence, 2) mountain waves without boundary layer influence, and 3) ducted lee waves without boundary layer influence. Particular attention will be given to periods when the mountain wave is breaking and micro-timescale interactions are likely. It is expected that these studies will yield a far more complete understanding of how topographically induced gravity waves and the lower tropospheric boundary layer mutually interact. Potentially this research could yield insights and improvement in forecasting of the severity of wind gusts in complex terrain ***